The Indianapolis Challenge

The goal of the project is to produce a one hour television documentary and a series of video teaching modules which explore a wide range of scientific disciplines in an exciting manner by presenting the story of how these disciplines are used in the preparation and racing of an Indianapolis race car. This program will be distributed to a wide audience through its broadcast by PBS and cable sports networks; through dissemination to classrooms and museums nationwide; and through distribution via agencies that focus on bringing educational programs to youth and minorities across the country. We expect to attract a new audience to science, the millions of Americans who are infatuated by automobiles. This is an audience that cuts across age, ethnic and racial distinctions in America today. This exciting story of applied science should also appeal to American youth in a way that more traditional science stories do not. The major scientific disciplines involved in the project are: basic engineering, mathematics and physics, aerodynamics, materials science, mechanics, telemetry and computer aided design. This project is submitted to the Informal Science Education Program. The specific content of this project will be aimed at an audience with little background in science. High-school students and adults should be able to understand all the principles presented. Younger audiences will gain insight into how a knowledge of science is fundamental to a sport that many of them find fascinating.